SBIR Phase II: A nature-based nearshore floating infrastructure solution for coastal adaptation

The broader impact of this SBIR Phase II project is to help manage environmental change in coastal cities. Currently, a gap exists in the coastal infrastructure community for an effective solution that supports ecological health and community-based co-benefits over traditional gray infrastructure, such as seawalls, berms, or structured fill. This project addresses that gap through a novel full-scale experimental implementation of a reliable and durable network of floating biomass-based modules for coastal protection. The proposed project develops a dynamic, detail-oriented scientific approach and technical modeling. This project will demonstrate how an interconnected, anchored network of vegetated biomass modules can dampen wave energy, absorb water pollutants, and create an engaging community space for coastal cities.

The technical innovations of the proposed SBIR Phase II project are: (A) a new material engineering approach for seaworthy floating modules based on biomass and living plants, anchored in a hexagonal array and interconnected; (B) a full numerical predictive modeling suite to simulate biogeochemical effects, fluid dynamic network effects, and hydrodynamic effects of large such networks of modules; and (C) a fully functional prototype network to study physical behavior and effects. This project consists of five separate experimental objectives: (1) extensive unit prototyping, redesign and monitoring to assess manufacturer material and biological behavior over time, (2) ecological monitoring of individual unit and network impacts leading to the development of a predictive biogeochemical model, (3) translation of physical wave tank lab results into a predictive coastal environment simulation model, (4) hydrodynamic analysis of a full-scale experimental network prototype, and (5) development of technical methods for production and deployment at scale.